Instrumentation for Time Correlated Single Photon Counting

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Maryland in College Park will acquire instrumentation for time correlated single photon counting. This equipment will enhance research in a number of areas including the following: a) single-molecule studies of protein-induced DNA conformational populations; b) measurement of fluorescence lifetimes from short-lived low quantum yield species; c) studies of complex fluorescence kinetics and reorientation of new molecular surfactants adsorbed to liquid/liquid interfaces; and d) investigations of radical chemistry in environmental systems.
Measuring time resolved fluorescence affords researchers direct insight into the local environment and dynamics around a probe. Techniques developed to monitor time resolved fluorescence have been broadly applied to established fields such as photobiology as well as newly emerging areas in materials chemistry.